CRCM: Northeastern University Comprehensive Regional Center for Minorities

HRD-9353129 Blackman, David and Gilmore, Maurice Northeastern University Boston, MA "Northeastern University Comprehensive Regional Center For Minorities" This proposal describes a plan to establish the Northeastern University Comprehensive Regional Center for Minorities in science, engineering, and mathematics, bringing together academic, community, and industry resources in a coalition committed to increasing the number of minorities in technical and scientific professions, by providing students with the continuity and support they need as they progress through the pipeline from grades K-12. The Center will serve both as a sponsor of its own activities and as a coordinating body for external projects, providing funding, resources, and access to expertise. The initial consortium will consist of Northeastern University, the Boston Public School System then adding Cambridge schools and other area institutions, and business and community groups; the initial target population will be elementary school children participating in after-school and summer math and science enrichment programs, and middle and high schools students and teachers from selected Boston schools. The number of schools, students, parents, and teachers will be increased each year. The NUCRCM's goal is to at least triple the number of minority students taking and successfully completing SEM courses in the first 5 years. Long-term objectives are to establish working coalitions among existing programs, develop and implement new programs and curriculum, coordinate efforts to ensure that students successfully complete algebra by the end of 8th grade and pre-calculus by the end of high school, provided teachers with extensive in-service training, and get parents involved in the education of their children. Our strategy is to funnel more and more students into already-existing programs such as the Explorers Club and MassPEP, new programs such as SteppingStones and COSMOS II, and programs to b e developed. Over time the evaluation process will identify those programs which are successful and should be expanded and those that need to be modified or even dropped from Center sponsorship. The Center Staff will consist of a full-time Director, a full-time Program Coordinator; a Senior Co-Investigator and Math Coordinator; Co-Investigators in chemistry, physics, and biology; a Senior Evaluator; Advisory Board; and Industry Pane.